Molecular Structure Toxicity Assays

The sheer magnitude of the number of chemicals in use (over 60,000) and the rate at which new chemicals are commercially introduced (200-1000 per year) requires that screening assays be developed to predict environmental toxicity. This research proposes to assay the environmental toxicity of five classes of hazardous chemicals on three classes of microorganisms which are environmentally significant. The hazardous chemicals investigated will be 1) the congeneric chlorinated phenols, 2) the congeneric chlorinated benzenes, 3) the congeneric chlorinated aliphatics, 4) an additional selection of chemicals in the U.S.E.P.A. Priority Pollutant list and 5) selected inorganic ions. The environmentally significant microorganisms will be: 1) Heterotrophs/activated sludge, 2) Nitrites and 3) Methanogens. The principal investigator has an excellent research record and he is highly qualified to perform the proposed work. A two year continuing grant is highly recommended. This is an award of $106,440 for the first year.